RIA: Experimental Investigation of Convective Single-Phase and Flow Boiling Heat Transfer Augmentation: Applied to the Thermal Control of Electronic Equipment

ABSTRACT -- CTS-93-10146 Herman The objective of the proposed research is the experimental investigation of convective single-phase and flow boiling heat transfer enhancement by combined resonant excitation of Tollmien-Schlichting instabilities and seeding the flow with bubbles applied to the direct immersion liquid cooling of electronic equipment. The resonant excitation is achieved by inserting cylinders in cross flow periodically above the downstream edge of electronic component rows. The same cylinders are used to inject bubbles into the flow. The mechanism of heat transfer on (i) the basic geometry without cylinders, (ii) the enhanced geometry with cylinders and (iii) the enhanced geometry with cylinders used for seeding the flow. Holographic interferometry will be used to visualize the unsteady temperature fields and measure local heat transfer coefficients. Also, the overall heat transfer coefficient and pressure drop will be measured.